Introduction Of GCMS Into Laboratory Instruction Pedogogy

9350977 Pivonka The project will purchase GC/MS instrumentation to enhance the upper division laboratory requirement by revision of laboratory exercises to focus on theory, techniques, operating parameters, limitations, potential and understanding of laboratory instrumentation. The project will support industrial personnel and life science majors in addition chemistry majors. The project will also support teacher training and inservice. A completely revised, non-traditional approach which integrates essential laboratory experiences with didactic instruction will be offered. ***